Resolving Anisotropy and Heterogeneity with P Waveforms

9902422
Masters

This project is to study seismic anisotropy, which can offer important clues about the crustal evolution and the dynamics of the mantle. The project proposes a new way of simultaneously using three-component single station and array data of broad-band P wave arrivals that may be less sensitive to tradeoffs between anisotropy and isotropic heterogeneity or to tradeoffs between spatial extent versus strength of anisotropy. This method provides a new tool to image the anisotropic properties of the near-receiver upper mantle and crust. This study will provide both a more realistic view of the behavior of P-waves, characterizing the deviation of longitudinal motion from the source-receiver great circle and providing a different method of characterizing anisotropy.